Collaborative Research: CI-ADDO-NEW: StarExec: Cross-Community Infrastructure for Logic Solving

Logic solvers are software programs that can solve complex logical
formulas fully automatically. Problems in many areas of Computer
Science, such as artificial intelligence, program analysis, security,
hardware verification, and cyber-physical systems can be faithfully
translated into logical formulas. Those formulas can then be solved
fully automatically by logic solvers. Over the past two decades, at
least ten different logic-solving communities have emerged, based on
different logical languages and solving techniques. These communities
have independently been building computing infrastructure to aid
development and evaluation of their solvers: libraries of benchmark
formulas, cluster-backed web services, annual competitions, and more.
Such infrastructure also provides an important access point for
users, who can find all the solvers at one site, or even run solvers
on the infrastructure cluster to test their relative capabilities.
The goal of this research is to build a single piece of shared
computing infrastructure called StarExec, which will be used by many
different logic solving communities. StarExec will provide improved
services for established logic-solving communities, and lower the
entry barrier for new and emerging communities.

The StarExec infrastructure will consist of a custom web service
interfacing to a medium-sized compute cluster. This open-source
service will allow multiple logic-solving communities to host
benchmark libraries, run jobs comparing different solvers, and host
competitions. StarExec will leverage economies of scale to provide
more sophisticated services than is feasible for most individual
logic-solving communities. A very important goal of StarExec is not
just to collocate different logic-solving communities, but to unite
them. To this end, the StarExec team will develop formal
specifications of both the syntax and proof-theoretic semantics of
different communities' logical languages. This will be done using a
meta-language called LFSC ("Logical Framework with Side Conditions"),
developed in previous NSF-funded research. Translation of formulas
between compatible fragments of different logics will be implemented,
which will will enable a greater degree of integration between solver
communities than was previously possible. For example, it will be
possible for solvers in one community to be run on benchmarks from
another. This integration will also aid users of logic solvers, who
will have a greater variety of options, all in a common framework, for
solving their problems. The broader impact of the StarExec project
will be to accelerate the development, adoption, and convergence of
different logic-solving technologies. This will enable faster
progress in nationally important application areas such as artificial
intelligence, verification, security, and cyber-physical systems,
which increasingly depend on high-performance logic solvers.